The Topology and Geometry of Intrinsically Bent DNA

White
9805142
The investigator studies the structure of closed circular
DNA. The theoretical approach employs displacement-based Finite
Element Analysis (FEA), a well-established technique for
obtaining solutions to engineering problems in nonlinear solid
mechanics. FEA is used to describe closed DNAs containing
multiple coplanar bends that are in-phase; containing bends that
do not lie in the same plane; and containing bends distributed
both symmetrically and asymmetrically. It is predicted that the
twist distribution is uniform throughout the regions between the
bends; that the fraction of the linking number change converted
into writhe increases with the number of bends; and that the
regional contribution to the writhe increases if the bends are
clustered in that region. Finally, it is predicted that the
equilibrium configurations of DNA containing multiple bends fall
into two distinct classes of writhe behavior, depending on the
ratio of the elastic moduli and the number of bends, and that the
initial supercoiling process is completely different for the two
different classes. Biologically, closed circular DNA is one of
the most important structural forms of DNA. This includes not
only free DNA molecules, such as the plasmids used in all genetic
engineering experiments, but chromatin as well, which is now
known to be divided into domains of supercoiling. Bent regions
in DNA appear to be significant in regulating the initiating of
transcription. This project provides the physical basis for
understanding the combined effects of these two structures.
DNA not only is a repository for genetic information but
also is involved in many aspects of the expression of this
information. For example, it is often necessary to bring
together portions of the DNA molecule that lie at considerable
distances from each other along the DNA contour. This
juxtaposition of distant genetic elements makes possible the
expression of biological information that is not otherwise
possible. This process is accomplished by forming a loop, in
which the two elements that are to be brought together interact
at the site of loop closure. The bringing together of these
distant genes depends in a sensitive way upon the length of the
DNA piece that separates them, upon the helical periodicity, and
upon the salt concentration of the cell in which the DNA resides.
This project shows how the presence of internal bends in DNA
within the loop fundamentally changes how distant segments are
brought together. The distribution of these internal bends can
thus have profound biological consequences.